Precast Frames Connected with Unbonded Prestressing Tendons (PRESSS)

9307840 Priestley This project carries out studies for the development of an innovative prestressed reinforced concrete system utilizing precast beams connected to columns by unbonded prestressing tendons continuous over the length of the multi bay frame. The tendons provide continuity and moment resistance to the beams and the tendons remain elastic when flexural cracking develops during seismic response. The major tasks are (l) testings of large scale assemblages, (2) modeling of hysterestic characteristics, (3) time history analyses of multistory frames, and (4) design details development. Considerable advantages in terms of increased frame ductility, simplified joint design, etc. might be achieved through implementation of this innovative PRESSS system concept. ***